A Consecutive Two-Year Research Experience for Undergraduates and K-12 Teachers targeted at Particpants from the American Indian Communities (REUTINA)

This award provides funding to Johns Hopkins University, Center for Computer Integrated Surgical Systems and Technology (CISST) for the support of a collaboration getween the Center, the Mashantucket Pequot Tribal Nation (MPTN), The American Indian Higher Education Consortium (AIHEC), New Mexico State University (NMSU), The Center for American Indian and Alaskan Native Health (CAIANH), and Howard Communitiy College (HCC). The purpose of this collaboration is to develop an innovative pilot program modeled in part after both the REU and RET programs to attract and retain the future scholars, role models, educators and leaders from American Indian communities.